Improved Isotope Generator for Cardiac Imaging

This proposal suggests a very novel approach to producing radioisotopes for use in non-invasive diagnosis and assessment of heart disease. The short life isotope will be continuously separated from the long live isotope by the chromatography technique. Thus, the patient will receive primarily the short life isotope. The radiation dose and the time over which the patient is exposed to radiation will be greatly shortened. The background radiation will not increase significantly due the short half-life of the radioisotope. Therefore, the various medical techniques using radioisotopes can be used repeatedly without the background radiation creating noise that will degrade further testing using radioisotopes.